Advancing U.S. Support and International Scientific Collaborations in the Biological Sciences

This action funds the National Academy of Sciences to support the US national committee for 6 international organizations that are members of the International Council for Science (ICSU). These organizations are the International Union of Biochemistry and Molecular Biology (IUBMB), the International Union of Biological Sciences (IUBS), the International Union of Pure and Applied Biophysics (IUPAB), the International Union of Microbiological Societies (IUMS), the International Union of Physiological Sciences (IUPS), and DIVERSITAS (an international program for research in biological diversity). The goal of the participation in these international activities is to benefit the US from global investments in science and techonology by establishing nomenclature and standards, programs that promote capacity building, and collaborations with scientists outside the US and especially less developed countries.